Travel Support for the Second Gordon Research Conference on Materials Education; Plymuth, NH; July 30 - August 2, 2000

The Second Gordon Research Conference on Materials Education is held in Plymouth, NH, from July 30 to August 2, 2000. The conference has as its main focus the contents and design of a Materials Curriculum, predominantly at the undergraduate level. This includes a discussion of the ABET-2000 new accreditation system for engineering schools, student learning styles and portfolios, desirable skills of students from the academic and industrial perspectives, and how to design a new curriculum. The conference encourages participation of faculty from predominantly undergraduate institutions.